Development of a Parallel Automatic Test Generation System for Distributed Memory Multicomputers

This award is to support a postdoctoral associate to work in experimental computer science. The associate, Robert H. Klenke, will work with Dr. James Aylor on problems involving automatic test generation using parallel computers. The research will be to generate automatic test patterns for VLSI devices using parallel computers. Current state-of-the-art test pattern generation algorithms are primarily implemented on single processor computers. Because VLSI devices are increasingly being incorporated into products and because the size of recent devices requires long running times on even high speed serial computers, it is important to make use of the new generation of parallel computers. This postdoctoral associate will be developing a complete parallel automatic test pattern generation and fault simulation system.